Regularity Problems for Multiple Integrals and Interfacial Coarsening for Energy-Driven Models

Proposal DMS-0401048
PI: Xiaodong Yan, Michigan State University

Title: Regularity properties for multiple integrals and interfacial
coarsening for energy-driven models

The proposal addresses problems in three main areas.
In part one, we are concerned with regularity property of
minimizers of uniformly convex functionals. The objective
is to generalize method used in previous work of Sverak and
PI to construct counterexamples in lower target dimensions,
as well as to understand regularity property of minimizers
under further assumptions on the integrand. The second part
deals with regularity property of minimizers for both
compressible and incompressible models from nonlinear elasticity.
The main feature here is the singular behavior of the integrand
in the compressible case and nonlinear nonconvex constraint in
the incompressible case. Currently there is no general method to
deal with regularity problems for such integral. We hope that
the simple model problems studied in this project can help to
gain insight into more general cases. The third part addresses
interfacial coarsening phenomenon observed in many energy-driven
models from materials science. In particular, the aim is to provide
rigorous analysis on the value of the coarsening exponent for different
models. The analysis is closely related to deep and interesting issues
in calculus of variations, e.g.gamma limit of singularly perturbed
variational problems. The well developed tools from those areas provide a
better vision on the last project.

The questions to be studied are motivated both by classical theory of
optimization and contemporary issues in nonlinear elasticity and materials
science. An outstanding open question in continuum mechanics is to determine
what singularities might exist in surfaces which optimize a collection of
nonlinear constraints. Knowledge of this type can help in the design of
exotic materials. The study of coarsening is important for both bulk and
thin film materials. Such materials are of great practical interest. For
example, superconducting thin film devices are presently being evaluated for
possible use in high-performance microwave filters and other applications.